Modeling the Evolution of Multiple Scale Nonuniform Finite Deformations in Actual Heterogeneous Materials

The prime objective of the research is to develop a system of computational models for response analysis of actual heterogeneous materials. In these materials, microscopic particulates or fibers (in reinforced composites) or precipitates and pores, (in alloy systems) of arbitrary shapes and sizes, are randomly dispersed in the matrix. The intended research is based upon a vigorous collaboration between university and industry. The research will blend voronoi cell elements, homogenization method and extend them, to innovate a novel and sophisticated system of computational modules, that will accurately depict the complex deformation mechanisms and material evolution in actual multi phase materials.